Industry/University Cooperative Research Center for Advanced Computing and Communication

9418765 Trivedi The North Carolina State University Industry/University Cooperative Research Center for Advanced Computing and Communication is becoming a multi-university Center with the addition of a research site at Duke University. Four companies are becoming part of the Center inconjunction with Duke University becoming a research site. The research agenda of the new multi-site Center will address high- speed networking, reliable and fault-tolerant systems, digital communication systems, distributed systems, and algorithms and digital image processing algorithms. Additional funding to augment the ongoing research program and to obtain a membership in the Center is being provided by the U.S. Department of Army and National Security Agency. The researchers are well qualified to perform the Center's research program. The Center is being co-funded with Dr. Yechelzkel Zalcstein in the Division of Computer and Computation Research (CCR). The Program Manager recommends Duke University be awarded: $100,000 for the first year of a five-year continuing award (cost shared with the I/UCRC Program and the CCR Division); $30,023 for one year with funds provided by the U.S. Department of Army; and $30,074 for one year with funds provided by the National Security Agency. Near the end of each 12-month period the Program Manager and/or the Division Director of the Engineering Education Center Division will review the progress of the Center on a number of renewal criteria requirements, including the following: 1) the extent to which the industry/university interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period od this continuing award.